Exploration in Symbolic Calculation and the Automatic Generation of Domains of Computation

Symbolic representation is one method mathematicians use to deal with infinitely many objects and infinite amounts of data. This SGER project aims to investigate symbolic expressions in a generality not addressed by existing computer algebra systems. For example, polynomial representations in most algebra systems permit each term to have symbolic coefficients but not symbolic exponents. Similarly limits in a summation or product formula are generally constrained to be constants rather than symbolic. An objective of this proposal is the identification, examination, and development of mathematical properties of such abstract symbolic objects naturally occurring in research in algebra and mathematical physics.